A Connectivity Laboratory To Strengthen Engineering Technology

CUNY Queensboro Community College is implementing a Connectivity Laboratory -- a cornerstone for future engineering technology development and a model for other technology curricula. The laboratory is designed to support experiments in connectivity, data communications, network technology, and multimedia networks. Six resource areas constitute the laboratory -- Student Stations, Instruction Resources, Connection Resources, Network Services, Multimedia Resources, and Display Resources. Four engineering technology courses are being scheduled to use the Connectivity Laboratory -- Connectivity Fundamentals, Network Fundamentals, Network Technology, and Multimedia Networks.Each laboratory bench has EISA and MCA bus computers which may be configured as workstations and fileservers, using Ethernet, Tokenring, or peer-to-peer Ethernet protocols. These may be interconnected into various network topologies using a lObaseT concentrator, multimedia access center, Ethernet bridge, fiber optic/Token- ring MAU, and a Token-ring bridge.